Mapping and Spatial Analysis: Laboratory Improvement in Image Processing and Geographic Information Systems

The Geography Department is equipping a laboratory with image processing and geography information systems for cartography. These increased capabilities are being used by undergraduates in both lower and upper division courses to integrate previously separate geographic activities. Mapping, surveying, digital remote sensing, and spatial analysis are now be carried out in a common environment. Students are able to perform the algorithms they previously could only read about, to experiment with different inputs, and to calculate the effects of different methods of spatial analysis.